Planning Grant for Discrete Field Dynamic Stability Analysis of Three-Dimensional X-Braced and Warren Truss Lattices

This planning grant, submitted in conjunction with the Minority Research initiation program, will provide support to develop a research proposal to use the techniques of discrete field mechanics to develop closed form solutions for the dynamic stability analysis of X-braced and Warren truss three-dimensional lattices.